U.S.-Japan Photoconversion Program: Effect of Solution Medium on the Efficiency of Excited-State Electron-Transfer Reactions

This award will enable Professor Morton Z. Hoffman and an assistant from Boston University to collaborate with Professor Takeshi Ohno and his research group at Osaka University, Japan over a period of two years. They will investigate the effect of solution medium on the efficiency of excited-state electron-transfer reactions involving transition-metal coordination complexes using fast kinetics photochemical techniques, such as pulsed-laser flash photolysis and time-resolved spectroscopy. The investigators will try to determine the yield of release of redox products from a solvent cage upon the oxidative and reductive quenching of electronically-excited RU(II)-polypyridyl complexes, and the reductive quenching of excited Cr(III)-polypyridyl complexes as a function of type of solvent, ion-pairing, presence of sacrificial reagents and solution organizates, and temperature. The purpose of the research is to gain insight into the events that occur between geminate radical pairs within the solvent cage, especially the back electron-transfer reaction. The research will benefit from the complementary skills of the research groups in the United States and Japan. Dr. Hoffman's expertise is on the effect of ion pairing on reaction dynamics and Dr. Ohno is skilled in the theory of back electron-transfer reactions. Together they will try to understand the experimental conditions necessary to optimize the generation of high-energy charge-carriers from excited-state electron-transfer reactions. This work has major implications in the future design of solar energy conversion and storage systems. This cooperative project has received the approval of cognizant Japanese Government Agency representatives for support under the U.S.-Japan Program of Cooperation in Photoconversion and Photosynthesis.